Collaborative Research: Synthesis, Verification and Testing for Nano-CMOS and Beyond using Threshold Logic

Project Id: 0702831 and 0702628
PI(s): Sarma Vrudhula and Spyros Tragoudas
Title: Synthesis, Verification and Testing for Nano-CMOS and Beyond using Threshold Logic
Institutions: Arizona State University &

ABSTRACT

By 2020, when thickness of Silicon will be less than a stack of a few atoms, the Semiconductor Industry Association roadmap predicts that further scaling CMOS circuits will not be sustainable, and expects a transition from CMOS to one or more of the presently nascent nano technologies such as resonant tunneling diodes (RTD), carbon nanotube FETs (CNFET) and carbon nanowires. Further in the future are devices such as single electron transistors (SET), and quantum cellular automata (QCA). An important and distinctive characteristic of these post-CMOS nano technologies is that they make it possible to efficiently and naturally implement threshold logic (TL). While TL concepts have been known since the 1960s, there has been no comprehensive work on synthesis and optimization of large TL networks similar to what we have witnessed over the past 30 years for traditional CMOS logic gate networks.

This is a proposal to develop a comprehensive design methodology encompassing synthesis, optimization, verification, and testing of TL networks. We propose to investigate synthesis algorithms that start with a technology independent, functional description of the circuit. Optimization of TL networks poses unique problems. Regardless of the underlying technology, TL gates are realized by comparing the weighted sum of the inputs with a given threshold. This can be a comparison of voltages or currents. Since process variations can change the outcome of such a comparison, they not only effect the performance and power but can also change the function realized by the gate. We refer to this as the functional yield (FY). We will develop new algorithms that jointly maximize the FY, power consumption, and performance of a TL network over the space of process variables, e.g. device lengths, widths, threshold voltages, oxide thicknesses, etc. Methods for testing the manufactured circuit for functional correctness and delay using new parametric fault models will also be developed. Verifying the equivalence of a TL network to a given a functional specification has not yet been addressed. This is essential for verifying the result of the synthesis procedure as well as in determining the functional yield when the design parameters are represented as statistical quantities as models of process variations. Expected outcomes of this effort include: new CMOS and post-CMOS circuit architectures for TL gates; algorithms and tools to automatically synthesize, perform functional verification and generate test patterns for TL circuits; methods to compute the parametric yield of TL networks, modeling TL network parameters as correlated random variables; methods to perform joint optimization of functional yield, power consumption and performance of TL networks over the space of process variables.